Online Algorithms for Selective Multicast, Maximal Dense Trees, and Related Problems

The essence of this research is a systematic classification of the variants of the multicast problems that present themselves in various networking and distributed systems applications, as well as algorithmic solutions to these problems in the spirit of "competitive analysis". Even though the research pursued in this project is theoretical in nature, the algorithms developed may be of practical value. The issues addressed are also being very actively studied by the networking community. This algorithmic effort may in fact bridge between the Theory and Networking communities, since the researchers in the Networking community are seeking solutions to dire problems created by the growing scale of the Internet and its applications. From the algorithmic point of view, which is the point of view taken in this proposal, the Multicast Problem can be defined as follows. Various network users issue online requests for a connection to certain multicast sources. The network either connects this request or rejects it (admission control decision). If a request is connected, a path with sufficient residual bandwidth is established starting at the requesting user and ending either at the source or at one of the users previously connected to the same source (route selection decision). The goal of these admission control and route selection decisions is to maximize the total number of users connected subject to the network capacity constraints. Namely, the number of connections to different sources passing through any edge should not exceed the capacity of that edge. The innovation in this research is in developing a unifying framework that simultaneously captures admission control and route selection decisions in their full generality. This framework can be generalized to include issues such as pricing policies, network design & synthesis, etc.